Summer at Notre Dame: Academic and Leadership Skills

In SANDALS, thirty young, minority women entering their senior year in Baltimore City Public Schools sample college life in a supportive atmosphere during a highly structured, rigorous five week, residential program. They will encounter both the challenges and stimulation of college life as they explore fields of science, examine ethical issues, learn mathematics, improve study and communication skills and enjoy field trips in the arts and sciences. Through dormitory living students become more independent and learn to better manage their time and resources. The core academic component of Sandals-Teams consists of week-long mini-courses in biology, earth sciences, chemistry and physics in which students engage in laboratory activities utilizing instruments not available in high school. The mathematics courses focus on skills needed in each of the sciences. In Special Topics, ethical issues related to each science are explored. A college-level English course with a writing support class balances the offerings. Workshops in College Survival Skills, Study Skills and Personal Development provide guidance and strategies for personal success. Field/career experiences in the sciences, cultural events, and the high-lightning of the achievements of women and minorities will expand students' horizons.